An integrated approach to modeling and simulations of complex fluids of microstructures

Wang
DMS-0605029

The investigator combines multiscale modeling, analysis, and
computation to study a variety of polymeric liquids of
anisotropic microstructures. The microstructure of these
polymeric liquids consists of anisotropic polymers and
nanoparticles whose configuration, conformation,
rigidity/flexibility, and chemical properties interact with the
other constituents in the materials as well as the macroscopic
flow field to effect molecular scale or nanoscale alignment that
controls the ultimate performance properties of the materials.
One of the goals of the project is to study how the macroscopic
flow field interacts with the micro-structure of the complex
fluids, leading to novel mesoscale morphology, and ultimately
influences the rheological as well as the material properties at
the macroscopic level. Other goals include studying how various
molecular geometries affect macroscopic material and rheological
properties, phase transitions, and mesoscopic structure
formation, wave propagation in biaxial liquid crystalline
polymers, and external field assisted flow processing of
polymeric materials and nanocomposites.

The investigator develops state-of-the-art multiscale
theories and models to study material and rheological properties
of liquid crystalline polymers and polymer-nanoparticle
composites and their fluid dynamics in various processing
conditions. The project is motivated by new discoveries and
emerging applications in nanomaterials and nanotechnologies. A
good understanding of the new materials and new processing
methods not only advances science, but also has implications for
industrial applications in materials and nanotechnology.